Performance Measurement Environment and Tools

The focus of this proposal is on providing the tools and environment for acquiring application and system performance data. A set of system performance monitoring tools will be developed and implemented which will allow the CNSF technical staff to monitor a single user application, groups of virtual machines, or all virtual machines currently running on the system.